MASTERS II: Math and Science Teachers for Reservation Schools Two

This project, Masters II: Math and Science Teachers for Reservations Schools II, is a renewal of a previously funded program which will serve 117 teachers of Native American children in grades K-9. Teachers will be selected from the entire United States, but especially from the sixteen states with schools serving predominantly Native American students. Each year, thirty five teachers from public and Bureau of Indian Affairs (BIA) schools will participate in intensive eight-week workshops to improve their mathematics and science content and pedagogy. Six of these teachers will be selected to participate for a second and third year eight-week workshop during the two subsequent summers. These selected teachers will mentor new participants, develop their leadership skills and work closely with agency and education personnel to effect change in their own local school districts. This project design of building leaders through their three-year involvement holds real promise for effecting change. Curriculum materials, especially adapted for their effectiveness with Native American students, will be used extensively. An existing BIA funded electronic network, ENAN, will facilitate the networking so important for teachers who are spread across the country. The University of Kansas, Haskell Indian Junior College and participating school districts as well as the BIA are cost- sharing this program. The bulk of the cost-share is coming from the Bureau of Indian Affairs in an amount twice that of the NSF request. This funding supports programs that are integrated with the MASTERS project as well as those that precede it and support it.